Engineering Research Equipment Grant: Micro-Computer for Research in Earthquake Engineering and Structural Reliability

Advanced computer equipment is acquired in support of the current and future research in earthquake engineering concerning structural safety at the Virginia Polytechnic Institute (VPI). The computer equipment acquired consists of important peripherals with features such as a 512 KB memory, 1.2 MB floppy disk drives, 20 MB hard disk drive, color graphics and display, printer, FORTRAN compiler, VM PC, word processor, and a math co-processor.